Computer Simulations of Radiation Generation From Relativis-tic Electron Beams

The PI's propose to use improved relativistic electromagnetic particle codes as well as existing codes developed under their previous NSF grant (ECS-8219105) to address crucial issues concerning the generation of coherent radiation from relativistic electron beams. The simulation studies will be carried out in the microwave range and will include the free-electron laser, electron cyclotron maser, and Cherenkov maser. The research will investigate: the effects of ac and dc space charge fields on the gain, resonant condition and nonlinear efficiency of various high current free electron devices; the transverse mode competition in various free electron devices; the effectiveness of using a background plasma for beam dc space charge and current neutralization and the feasibility of using the interaction between relativistic electron beams and plasma filled waveguides to build coherent radiation sources; and the efficiency of a Cherenkov maser in a planar dielectric waveguide and a high-harmonic gyrotron using axis-encircling large electron orbits.